Governor's School Strengthening Grant

9353015 Allyger Mountain Empire Community College seeks to initiate a four-week, commuter, Young Scholars program in multi-disciplinary science and mathematics for 60 students entering grades 10-12. The program provides the students with hands-on scientific and mathematical research, including field trips to science related facilities. Real world environmental and ecological problems are studied, and innovative teaching methods are used. The students are provided a choice of study in the fields of microbiology and environmental science, chemistry, geology and physical science, and mathematics and computer science. Follow-up activities are included during the academic year.